Weak Decays of Oxygen-14 and Boron-8

We plan to design and construct an electron spectrometer
(a device for measuring electron energies) and to use the
spectrometer to carry out two new experiments.
The spectrometer will use superconducting magnet
technology to generate precisely controlled magnetic
fields which deflect and focus electrons emitted from a small
radioactive source. This will permit us to measure the
energy distribution of the electrons produced in the
radioactive decay. The specific experiments to be
performed involve studying the decays of the radioactive
isotopes oxygen-14 and boron-8. The oxygen-14
experiment is designed to test what is referred to
as the Conserved Vector Current (CVC) hypothesis, which
is a fundamental component of the Standard Model of
Weak Interactions. The Standard Model is the basis for
understanding a wide variety of processes, including the
beta-decay of nuclei, the process which produces the electrons
in our experiments. The CVC hypothesis allows us to
predict the electron energy distribution, and the experiment
will test whether that prediction is correct.
The purpose of the boron-8 experiment is to provide new
information that will help physicists understand the
spectrum of neutrinos from the sun. Boron-8 plays a critical
role in solar neutrino studies. The neutrinos from decay
of boron-8 in the sun are relatively high in energy, and most
of the world's operating solar neutrino detectors primarily see
the boron-8 neutrinos. Since the electron and the neutrino
share the decay energy, we can obtain information about
the expected neutrino spectrum from a measurement of the
electron energies.